Collaborative Research: P2C2--Constraining Cloud and Convective Parameterizations Using Paleoclimate Data Assimilation

The general goal of the research is to develop a new framework for advancing model representations of cloud and convective processes by integrating paleoclimate data and climate model simulations. Specifically, the research strategy consists of three main objectives: (1) conduct fully coupled, isotope-enabled simulations for the Last Glacial Maximum (LGM), mid-Holocene (MH), and pre-industrial (PI) time periods using a wide ensemble of cloud and convective parameter sets; (2) perform paleoclimate data assimilation on the perturbed parameter ensemble (PPE) using sea surface temperature (SST) and water isotope proxies, respectively; and (3) use the posteriors from the LGM, MH, and PI assimilations to identify which cloud and convection parameters provide the best match to the proxy data, then conduct present-day and doubled carbon dioxide (CO2) experiments with these parameter sets to calculate a narrowed estimate of equilibrium climate sensitivity.

Equilibrium climate sensitivity (ECS) is a key climate metric that quantifies the rise in global mean surface temperature in response to doubling of atmospheric CO2 relative to PI levels. Changes in hydroclimate, temperature extremes, and other aspects of the climate system in future projections are closely tied to a model’s ECS. For decades, estimates of ECS have remained wide despite improvements from using multiple lines of evidence. One persistent source of this spread is related to cloud and convective processes, which occur at scales too small to be explicitly resolved, and thus require parameterizations to be represented in climate models. This project seeks to address this issue.

The potential Broader Impacts include improvement in climate models, school term and summer internship experience for a high school teacher and graduate student in collaboration with NASA, involvement of undergraduate students in research through the Garden State Louis Stokes Alliance for Minority Participation.